Purchase of an X-Ray Diffractometer

9309690 Barton This award from the Chemistry Research Instrumentation Program will assist the Department of Chemistry at the University of Missouri--St. Louis in the purchase of an x-ray diffractometer and an associated data analysis system. This new instrumentation will enhance greatly research in a number of areas including the following: Structural and mechanistic studies of Dppc-bridged diplatinum complexes; Structural studies of group IV derivatives of pentaborane(9) and hexaborane(10); The use of high resolution diffraction x-ray analyses of the electronic and structural properties of organometallic molecules; Chiral phosphonamides in stereoselective bond formations; and Structural studies of silicon tricycles and silicon-silicon bonds. %%% The x-ray diffractometer is used to make accurate and precise measurements of the full three-dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of that molecule relative to the neighboring molecules. ***